Development of a Laser Laboratory for Instrumental Analysis

The purpose of this project is to introduce the use of lasers to the instrumental analysis laboratory program at the College of Charleston. The forefront of optical spectroscopic research involves the use of lasers for both atomic and molecular spectroscopy. The acquisition of the equipment is allowing the establishment of a strong laser component for the course. The experiments being developed involve quantitative molecular florescence, the quenching of one fluorescent molecule by another, and thermal lens spectroscopy. The modular approach to construction of the three experiments is helping the students to better understand the design of the experimental set-up. An additional benefit is the development of alternative projects to those that are currently available in the department for undergraduate senior research by expanding opportunities in atomic and molecular spectroscopy. The institution is matching the NSF grant with an equal amount of funds.